New Encoding and Demodulation Format for Ultra-High Transfer Rate CD-ROM

WPC 2 B J Z Courier #| x @ x 6 X @ `7 X @ HP LaserJet 4 HPLAS4.PRS x @ \ S SX @Courier Courier Bold 2 X A F Z l ? x x x , @ x 6 X @ `7 X @ ? x x x , ) x ` 7 X X t u > t > t > t u t@ >Q t1 2 q > v 2 } :F u } q } q *. } 9361331 Fu This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This Phase I project investigates the use of microlaser arrays to produce multichannel optical heads for retrieving data off CD-ROM. The project is evaluating the performance and functionality of CD-ROM drives using the multichannel read-out with (a) the present CD-ROM format, and (b) a new encoding and demodulation format optimized for multichannel read-out.